REU Site: Training Students to Model Polymer Behavior Through Computer Simulations

This is a Research Experiences for Undergraduates Site Award at the University of Pittsburgh. The funds provide support for eight undergraduate students selected from candidates from six colleges in the general area of Pittsburgh, Pennsylvania, to allow participation both in the summer and during the academic year. Special emphasis is placed upon recruitment from institutions having all female students, in order to attract more females into careers in research and teaching. Students from departments of physics, chemistry, and engineering are considered. Scholastic achievement is the primary requirement for participation in the program. The research will involve research in the area of computer simulation and modeling of polymer behavior using Monte Carlo and molecular dynamics techniques. The professors involved in this program have a strong record of interaction with undergraduate students in research, and have won honors for joint publications in the past.